U.S.-Japan Collaborative Research on High-Temperature superconductors for Power Transmission Cables

9513059 Iwasa This award supports a three-year cooperative research project between Professor Yuki-Kazu Iwasa, Department of Mechanical Engineering, Massachusetts Institute of Technology, and Professor Osami Tsukamoto, Faculty of Engineering, Yokohama National University, Yokohama, Japan. The project involves other U.S. investigators from the Brookhaven National Laboratory, Los Alamos National Laboratory, Rensselaer Polytechnic Institute, and Iowa State University. The specific issues to be covered in this phase of the collaborative effort are: (1) AC losses in high-temperature superconductors (HTS), particularly the impact of conductor design, (2) conductor processing techniques for "long" HTS, and (3) stability and protection of power transmission cables. The United States and Japan are the leaders and rivals in superconducting magnet technology and are the nations most intensely engaged in high-Tc superconductor research and development. At present, since the R&D effort in Japan on high-Tc superconductivity, both in university and industry, is substantially greater than it is in the United States, it is likely that this exchange program will greatly benefit U.S. researchers. ***